Nonstandard Cosmological Histories: Models, Implications, and Probes

This award funds the research activities of Professor Rouzbeh Allahverdi at the University of New Mexico. The cosmic microwave background and big bang nucleosynthesis are our best observational probes of the early universe, providing information about it at about 400,000 years and one second after the big bang respectively. However, we know much less about the universe within its first second. There are compelling theoretical motivations for the idea that the cosmological history at very early times could be (very) different from a mere extrapolation of what it looked like at one second. Studying such “nonstandard cosmological histories” and their observable signatures is therefore important for understanding the very early universe and its subsequent evolution. As a result, research in this area advances the national interest by promoting the progress of science in one of its most fundamental directions: the discovery and understanding of new physical law. This project is also envisioned to have significant broader impacts. Professor Allahverdi will involve graduate and undergraduate students in his research and thereby provide critical training to junior physicists beginning research in this field. The PI will additionally bring his results to a broader audience through job shadowing and mentorship of high-school students, as well as by visiting schools and giving public lectures.

More technically, the research supported by this award focuses on investigating alternative cosmological histories of the universe when it was a tiny fraction of a second old. This research has a three-fold goal: first, to study well-motivated particle physics models that give rise to nonstandard cosmological histories; second, to explore observational probes of such histories, especially their distinct signatures for gravitational wave detectors; and third, to examine their implications for dark matter and matter-antimatter asymmetry of the universe. To achieve these objectives, Professor Allahverdi will build new particle physics models of the early universe and study novel predictions that can be tested in various experiments.